NMR in an Integrated Advanced Laboratory

The project will use NMR methods as a basis for the development and implementation of a new integrated laboratory course designed for advanced undergraduate chemistry students. This course will consist of fourteen experiments, the vast majority of which will involve elements of both chemical synthesis and the application of sophisticated instrumental analysis techniques. It will replace individual advanced laboratory courses in organic chemistry, inorganic chemistry, instrumental analysis, and physical chemistry. The exercises were chosen to be representative of research problems in chemistry and biochemistry, thereby introducing students to the excitement of modem experimentation in these areas. Specific applications include multi-nuclear characterization of synthetic products, the use of NMR methods in a kinetic determination, the determination of reaction enantioselectivity with chiral shift reagents, and studies of structure, conformation, and solution dynamics using NOE and two-dimensional techniques. In several cases students will be encouraged to choose their own experi- mental approach, and we will emphasize the importance of meeting as a group to share data and observations.